Ultracentrifugation for the Study of Subcellular Organelles and Macromolecules

The methods of cell fractionation and macromolecule purification and the subsequent detailed analysis which they make possible are essential for future biologists to comprehend and practice. The acquisition of an ultracentrifuge and two rotors significantly enhances the ability of Skidmore's Department of Biology to teach these key concepts in cell and molecular biology. The ultracentrifuge makes possible a series of laboratory experiments to purify organelles (e.g. golgi, microsomes) or macromolecules (DNA, RNA, proteins) for further characterization by biochemical and structural methods -- experiments that were not possible without the instruments secured through this grant. The new equipment considerably expands and updates the laboratory experience of the students, improving their understanding of cell structure and function, the molecular basis of cell function, and current research techniques. Courses from the sophomore to senior level are being affected.